Modeling: Instructional Materials and Software for Theory Building

The goal of this project is to give students in grades 7-12 tools and materials to understand complex systems. Students will be able to create models of complex situations and evaluate the correctness of their models using empirical data. In short, they will be able to build and test theories, and apply these skills to the sciences. This goal will be accomplished by a three phase project to develop powerful, fast software packages with good user interfaces that allow easy model creation and testing, together with a sequence of instructional material using this software. This project funds the first phase of this effort during which prototype software and material will be developed, tested and published. The resulting curriculum materials will be widely disseminated through newsletters, symposia, teacher workshops, professional presentations and commercial publication. The material will be developed by Technical Education Research Center (TERC) with the collaboration of leading educators and area schools. This project is funded jointly with the Instructional Materials Development Program.